I/UCRC: Power Systems Engineering Research Center (PSerc)

EEC-0002917
Kezunovic

This proposal expresses the intent of Texas A&M University (TAMU) to join the Power Systems Engineering Research Center (PSerc). To emphasize this intent, the following issues are discussed: benefits of TAMU's participation in PSerc, benefits of participation of TAMU's industry partners, proposed research areas, proposed research projects, TAMU's support of the proposal, and site director credentials. The main objective of TAMU's participation in PSerc is to enhance research capabilities of both PSerc and TAMU. This will in turn provide the research infrastructure that will serve better PSerc industry partners as well as the public at large as the benefactors of the developments in the industrial base.